Major Expansion of Computer Facilities for Scientific Research

9123574 Hermans' This project will create a workstation cluster in the Molecular Modeling Laboratory that will be used for studies of structure and function of biological macromolecules as well as for other biological studies. The workstations will also be available for students to use in classes and workshops. The workstation cluster will be employed principally by investigators who use quantum mechanics and molecular dynamics in understanding molecular structures and biological activity. Examples of such areas include physical chemistry of ionic interactions and of phospholipid membranes, problems of folding and conformational stability of proteins and peptides, and interaction of small molecules and proteins with nucleic acids.